Improvements in Molecular Emission Experimentation at the Undergraduate Level

The students' basic understanding of molecular emission phenomena and the measurement applications which contribute to knowledge of excited states and energy transitions is being improved. Through the use of a computer-controlled luminescence spectrophotometer and a stopped-flow accessory, new experiments are being incorporated in organic, biochemistry, and physical/analytical laboratories for both majors and non-majors. Students in lower and upper division courses are having an enhanced experience with fundamental principles of excitation- emission, chemiluminescence, intermolecular energy transfer, excited- state lifetimes, and analytical applications of luminescence in elucidating biochemical reactions. The undergraduate research program is also being facilitated, as well as a secondary school chemistry teacher's Staff Development Program under the auspices of a grant from the Georgia States Department of Education. The entire project is promoting a significant advance in unifying concepts related to structure and energy transitions. The grantee is matching the award from non-Federal sources.